Friction Stir Processing Industry/University Cooperative Research Center

The current Industry/University Cooperative Research Center for Friction Stir Processing focuses on furthering developments in the following fields of study for FSP/FSJ of ferrous, non-ferrous, and metal matrix composite alloys: Friction Stir Joining; Friction Stir Post-Processing; Friction Stir Structural Designs and Applications; Friction Stir Intelligent Controllers and Efficient Tooling ; and Friction Stir Cost Benefits Analysis. The University of Missouri-Rolla site will focus on Friction Stir Microstructural Modification.